Feasibility Study of Double-Layer Tensegrity Grids

Tensegrity structures are self prestressed cable networks (i.e. do not require anchorages), in which the cable network is prestressed against a discontinuous system of bars. This arrangement makes these structures inherently collapsible and deployable, since in the unprestressed state, cables are lax and the disjoint system of bars provides no rigidity. Tensegrity structures share potential applications with other types of deployable structures. They include: 1) Temporary space covering (e.g. exhibition halls); 2) Temporary shelters in transient situations such as for expeditionary forces, flood and other natural disaster emergencies, social events; 3) Shelters in inhospitable climates or inaccessible areas; 4) Sports halls; 5) Decorative, architectural space coverings; 6) Deployable structures in space such as dish antennae, solar collectors, components in space and lunar stations. The objective of the proposed six months project is to demonstrate the feasibility, as well as potential limitations of double-layer tensegrity networks, by fully analyzing and designing a real-scale prototype, and comparing the result with a more conventional structure such as double-layer space truss. Combined with results of currently underway analytical and experimental work, the results of this investigation are expected to provide a firm basis for a proposal for an investigation of larger scope.